Physiological and Ecological Significance of Multiple Ribosomal RNA Operons in Bacteria

As the genomes of bacteria are explored in greater detail, it has become
obvious that most genes are present at a single position on the
chromosome. The most obvious exceptions to this observation are the genes
that encode for ribosomal RNAs, for which there are as many as 15 copies.
This work will represent the first comprehensive effort to explain the
puzzling occurrence of multiple ribosomal RNA genes in bacteria.
Preliminary results suggest that the number of rRNA genes reflects the
ecological strategies of diverse bacteria: those possessing multiple
copies may exhibit increasing competitive fitness when nutrient availability
fluctuates, while those possessing few copies may be more efficient at
growth under constant, low-nutrient conditions. The PIs will examine the
possibility that the number of ribosomal RNA genes in a bacterial genome
represents one trait among a group of interdependent traits that influence
the distribution of bacterial populations in nature. The principles
derived from this research should be applicable to understanding the
distribution of bacteria that play crucial roles in the global cycling of
elements as well as bacteria used in bioremediation or those that have
symbiotic relationships with plants or animals.